Conference: 2025 Bloomington Geometry Workshop

This award provides support for the Bloomington Geometry Workshop in the years of 2025, 2026, and 2027, with the 2025 meeting taking place at Indiana University on April 4-6, 2025. It also supports the affiliated Geometry, Groups, and Dynamics (GGD) Day, a smaller-scale regional workshop, to be held on a Saturday each spring. The workshop will promote interaction and scientific cooperation among mathematicians engaged in cutting-edge research in geometry and related areas. The workshop emphasizes the training and professional development of graduate students and other early-career researchers. Such experiences are critical to the development of early-career mathematicians, new members of a workforce that will help the nation address the technological challenges of the 21st century.

The workshop employs a format that strongly encourages both formal and informal interaction among students, postdoctoral associates, and more established mathematicians. The workshops begins with a Friday afternoon Colloquium by the plenary speaker. The 2025 plenary speaker will be Laura DeMarco. The workshop continues on Saturday with five talks, a curated grouping of junior participants with speakers for lunch, a poster session, and a banquet on Saturday. It concludes with two talks on Sunday. The GGD Day program includes 4 speakers on a single Saturday, held at a location which rotates among institutions in central Indiana and Illinois, including rural, primarily undergraduate-serving, and urban campuses. More information about the BGW can be found at https://bgw.sitehost.iu.edu/